NSF/CBMS Regional Conference in the Mathematical Sciences -- Topological and algebraic regularity properties of nuclear C*-algebras

This award will support an NSF/CMBS regional conference to be held at the University of Louisiana at Lafayette in the summer of 2012 on the topic of nuclear C*-algebras. The principal speaker will be Professor Wilhelm Winter from the University of Muenster. This award will support 24 participants at different stages of their careers.

The conference will focus on the recent advances made by Dr. Winter and his colleagues in nuclear C*-algebras and their connections with topological dynamical systems. Lectures will be designed to be accessible to graduate students and mathematicians with only basic knowledge of C*-algebras, and new open problems which present good research opportunities for graduate students will be discussed.